CAREER: Application-Driven Memory Hierarchy Management

CCR-9876128
CAREER: Application-Driven Memory Hierarchy Management
Vijay Karamcheti

The widening gap between processor and memory performance has reduced
the effectiveness of reactive memory hierarchy management techniques
such as demand-driven caching. Application-driven proactive
techniques (such as prefetching) have been shown to be effective, but
require extensive programmer involvement. This proposal investigates
automating such techniques for a general programming context,
specifically object-based distributed shared-memory (DSM)
implementations on clusters of commodity workstations. Integrated
compiler and run-time techniques first develop a model of thread
interactions in the program, and then, using this model, construct
per-thread custom coherence protocols that optimize DSM performance.
Static analyses augmented with run-time profiling determine the
concurrently-active thread portions and their side-effects. The
per-thread custom protocols overcome compile-time imprecision by
relying on flexible run-time coherence and scheduling primitives,
speculative optimizations, and improved utilization of available
architectural support. Educational plans focus on emphasizing the
interplay among applications, system software, and hardware in
existing computer systems courses, and developing new hands-on courses
in adaptive computer systems (which allow hardware and software
configurability under compiler and/or application control). Expected
project outcomes include technology for automatic application-driven
memory-hierarchy management, its incorporation into compiler and
run-time infrastructure for optimizing program performance on cluster
platforms, and students trained in application-aware computer system
design.